U.S.-Korea Collaborative Research Planning Visit: Investigation of Optical Dipole Traps for Ultracold Atoms

INT-0225869
Charles Sukenik
Old Dominion University

The project is about a planning visit for developing collaborative research work in optical dipole traps for ultracold atoms with researchers at Korea University in Korea. The proposed work is to address the issue of creating a perturbation limited environment for conducting precision measurements by studying two regimes of optical dipole force trapping.